Conference: Summer Symposium in Real Analysis 48

From June 14–20, 2026, Washington University in St. Louis will host the 48th Summer Symposium in Real Analysis (SSRA48), an official satellite conference of the International Congress of Mathematicians. For nearly five decades, this annual global symposium has brought together mathematicians from around the world to share ideas, train young researchers, and foster long-term collaborations. By returning the Symposium to the United States for the first time since 2019, SSRA48 will significantly expand access for graduate students and early-career researchers, particularly those in North America. The conference will provide these participants with direct exposure to world leaders in real analysis, a core area of mathematics whose ideas underpin modern developments in the physical sciences, engineering, and data science. The International Congress of Mathematicians satellite designation highlights the meeting's global significance and visibility.

SSRA48 will focus on recent advances in real analysis and closely related fields, including harmonic analysis, geometric measure theory, partial differential equations, and analysis on metric spaces. The plenary speakers are leading experts in real analysis, and their work includes connections to algorithmic information theory, learning theory, signal processing, time-frequency analysis, dynamical systems, and fractal geometry. In addition to the plenary lectures, the program will feature contributed talks by researchers at all career stages, a poster session emphasizing graduate student participation, and a problem session designed to stimulate new collaborations. By emphasizing early-career participation alongside established leaders, SSRA48 will advance cutting-edge research while supporting the professional development of the next generation of mathematicians. The conference website is https://www.math.wustl.edu/ssra48/